Digital Government: Defining a Motion Imagery Research and Development Program

EIA-9983481
Prudhomme, Thomas I.
University of Illinois Urbana-Champaign

Digital Government: Defining a Motion Imagery R&D Program

This is an award to support a workshop to identify a research agenda in motion imagery as related to the infrastructure requirements of government (military and civilian) agencies. National leaders in the use of motion imagery will be identified, white papers will be solicited, and the workshop will bring users and researchers together to develop recommendations for related R&D. A final report will be written and published in hard copy and on the Web. This workshop will be jointly supported by NSF and by the National Image and Mapping Agency